Splittings of Groups

DMS-0204509
Mark E. Feighn

The proposed work is in the area of geometric group theory.
A motivating question is: Given a graph of groups G with some
kind of restriction on the vertex and edge groups, what can be
said about G? For example, is G a non-trivial free product?;
does G split over the integers?; what is the JSJ-decomposition
of G? A focus will be on finite graphs of finitely generated
free groups. As an indication of progress along these lines,
with his graduate student Guo-An Diao, the principal investigator
has found an algorithm for determining whether a finite graph of finitely generated free groups is a non-trivial free product.

Topological spaces are often analyzed by cutting them open
and then considering the resulting simpler pieces. An easy
example of this is that if a circle is cut then an arc remains. Analogously, groups are often studied by cutting them open along subgroups. Since groups may be represented as symmetries of
spaces, splittings of groups and splittings of spaces are
two manifestations of the same construction. For example,
the splitting of the circle above gives a description of
the integers. One of the most exciting developments in
group theory over the past 20 years is the description by
Rips-Sela of all splittings of groups over subgroups such
as the integers. Dunwoody-Sageev and Fujiwara-Papasoglu
have extended the types of splittings that can be described.
The principal investigator will explore the extent to which
these descriptions can be made algorithmically.